Science Networks: A Model for Science Teacher Leadership

Science Networks is a three-year project which will enlarge the scientific competence of rural elementary teachers. Through a series of workshops during three academic years and two summer institutes of five weeks each, Pittsburg State University (KS.) scientists and science educators will instruct teachers in order to increase their knowledge of natural science, to serve as leaders for the in-service training of an additional 75 teachers, and to equip them to motivate their students toward careers in science. Throughout the project, highly regarded curricular materials will form the basis of the workshops and institutes, and the utilization of nature centers, environmental studies areas, and ecological systems will provide opportunities for engaging students in experiential science instruction. Pittsburg State University is contributing in cost-sharing an amount that is equal to 77% of the NSF award.